Regulation and Function of Genes Expressed in the Accessory Gland of D. Melanogaster Males

The accessory gland of the D. melanogaster male secretes products that, when transferred to females during mating, cause these females to increase oviposition, lose sexual receptivity, and maintain viable sperm. Dr. Wolfner has identified three abundant accessory gland-specific transcripts that encode polypeptides with signals for secretion and processing to smaller peptides. The goals of the proposed research are to characterize the regulation of these genes and to investigate the role of their polypeptides in fertility. Dr. Wolfner will determine the developmental regulation of the expression of the genes, and whether frequent multiple matings affect their expression by Northern blot analysis. A regulatory region of one of these genes will be defined, and used in a novel method to ablate particular accessory gland cells. The effect of this ablation on the synthesis of male-specific RNAs and upon fertility will be determined. The function of each gene will be determined in three ways. Antibodies which recognize its product will be used to follow the fate of that product after mating. The gene product will be introduced into females and its effects observed. Finally screens for mutants in one of the genes under study will be carried out. Dr. Wolfner has clones for genes that code for potential precursors to hormones that affect reproductive behavior. This provides important tools for the study of hormone receptors, behavior as well as the process of sexual differentiation.